Program Symposium "Mech Properties of Arthropod Structures:Engineering the Future" the national meeting of the Entomological Society of America, Salt Lake City, Utah 11/14-17/04.

Abstract.
Title: Mechanical Properties of Arthropod Structures: Engineering the Future.
PI. : K. Loudon, University of Kansas Center for Research Inc

The purpose of this proposal is to provide supplemental funding for a symposium entitled: Mechanical Properties of Arthropod Structures: Engineering the Future, which will take place at the annual meeting of the Entomological Society of America. The symposium will bring six speakers together to interact for the first time to showcase new techniques, experiments, and discoveries in the area of biological materials and structures of terrestrial arthropods (insects and spiders).
The purpose of this symposium is to stimulate further interdisciplinary research and to bring this area of science to the attention of a broad audience.